Experiments to Test Time Reversal Symmetry (Physics)

Several critical refinements are identified and proposed in connection with a very precise test of time reversal invariance using nuclear spin resonance in the thallium fluoride molecule. These improvements will increase the sensitivity of the measurement by an order of magnitude, which will bring it to almost three orders better accuracy than previous measurements. At this level the measurements will reveal, for the first time, an example of T asymmetry; or they will introduce a new constraint on possible theories.